Semianalytic Construction of Atom-Molecular Eigenfunctions (Physics)

The current work is dedicated to the further exploration and elucidation of those aspects of atomic and molecular physics dominated by strong interparticle correlation effects. The basic objective is to find a general and universal approach to the construction of atom-molecule eigenfunctions using hyperspherical or coupled channel treatments. The ultimate goal is to identify the key dynamical mechanisms governing the processes of interest and to describe them in terms of a few key variables. The studies include two excited electrons outside a closed shell core, and electron in a magnetic field, and the dissociative attachment of electrons to H2. The PI suggests that the fragmentation of a molecular complex can best be understood by examining the Jost matrices numerically. Attention must be paid to those regions where there is a breakdown of adibaticity for it is in those regions where the "chemical reactions" occur. Outside of these regions there is a smooth behavior of the wavefunctions which is governed by the balance between coulomb and centrifugal forces as the partices recede from one another. The approach is quite ambitious but success to date has been very limited. The PI feels that the major barriers have now been removed and progress will be made quickly.